NNATIONAL SCIENCE & TECHNOLOGY WEEK.....One Day Workshop, April 24, l991

To focus attention on early education during National Science and Technology Week, ASTC will hold an event on Capitol Hill featuring the Hands-on exhibit "What Makes Music?" on the physics of music and sound. The ASTC Honor Roll Teachers, selected by science Museums across the country for their exemplary use of science museum resources to improve science education in their schools, will be honored. Thirty teachers are expected to attend and take part in a one day workshop on inquiry based, hands-on science activities and experiments.